Evolutionary Biology at the American Museum: Undergraduate Research Experience in an Interactive Environment

This award provides continued NSF support the successful Research Experiences for Undergraduates (REU) program in Evolutionary Biology at the American Museum of Natural History (AMNH). Drawing on the research and teaching expertise of the Museum's scientific staff, the program revolves around projects carefully designed to introduce undergraduates to the excitement, challenge and relevance of research careers in Evolutionary Biology. The program is a comprehensive, interactive learning experience that has already proven highly successful in directing students into science career tracks. In addition to hands-on experience of research and publication the program includes a series of roundtable discussions where students discuss their research, "show and tell" their latest findings, and thrash-out ideas in an informal, friendly setting. A Special Lecture Series introduces the students to eminent scientists whose lectures address current debates in evolutionary biology, systematics, the biodiversity crisis and the role of museum research in these areas. Students will visit the Peabody Museum at Yale University, and gain insight into the role of collections in teaching programs. At the end of the program students participate in a Student Seminar where they give formal slide illustrated presentations and answer questions from the floor. The AMNH has established a comprehensive follow-up program which enables them to maintain contact with REU alumni, provide support and track their careers.